Intellectual Property Rights and the Emerging Information Infrastructure

It funds a major study that will assess issues and derive research topics and policy recommendations for the nature and use of National Information Infrastructure technologies, and for the generation, distribution, and protection of information content that flows within those technologies. The study will assess the state of the art and emerging trends, examine the available data, evaluate existing intellectual property law, and map the changing landscape of interactions among these. The information generated will provide critically-needed, technologically-informed input into the National debates on these issues